GK-12 Learning Partnerships: Creating Problem Centered, Interdisciplinary Learning Environments

GRADUATE TEACHING FELLOWS IN K-12 EDUCATION

ABSTRACT

PROPOSAL #: 0638719
PRINCIPAL INVESTIGATOR: Barbara M. Moskal
INSTITUTION: Colorado School of Mines
TITLE: GK-12 Learning Partnerships: Creating Problem Centered, Interdisciplinary Learning Environments

The GK-12 Learning Partnerships, a continuing GK-12 project between Adams County District 50 (AC50) and the Colorado School of Mines (CSM), focuses on creating problem-centered, interdisciplinary learning environments at the middle school level (grades 6-8). The principal investigators will include an additional school district (Aurora Public Schools). The continuing project will assess two implementation models. In model 1, STEM graduate fellows will work with one teacher in a classroom. In model 2, STEM graduate fellows will work with two teachers from two different classrooms. The intellectual merit includes providing STEM graduate fellows and collaborating teachers with international experiences (Honduras and Hong Kong). The broader impacts include planning for sustainability and institutional change for GK-12 like activities at CSM beyond the life of the continuing project grant.